Mathematical Sciences: Research in Applied Mathematics

The focus of research to be carried out under this REU site award will be the applications of mathematics. Eight students will have the opportunity to use one or more areas of mathematics in a meaningful way. These include the study of mechanical or electrical devices whose behavior can be approximated by a relatively simple dynamical system, e.g. a system of ordinary differential equations, which can be expected to have interesting properties such as periodicity or chaotic behavior. Other students will be introduced to problems in number theory. In particular, problems of finding large primes and of factoring large numbers will be investigated. This research will involve both theoretical and computational work. Analytical and numerical models for the evolution of mudwaves at the bottom of the ocean will be carried out. Students will study existing models and learn about more realistic ways to represent erosion and deposition in the ocean. These studies will be used to develop more sophisticated models of these complex phenomena. Research will also be carried out in theoretical population biology, using stochastic dynamic programming to study behavioral problems in a evolutionary context. Students involved in this area will learn the technique of dynamic programming from analytical and numerical studies of simple (and largely unrealistic) foraging models, then proceed to numerical experiments with models that are more realistic. A specific goal will be to explore various aspects of dispersal behavior in insects. Topological applications in chemistry and molecular biology will be used to model configurations in large molecules, molecular systems and dynamical processes in chemical reactions. Students will use knot theory to model DNA enzyme reactions and study topological entanglements of large polymer molecules in semicrystalline polymers.